Maricopa Mathematics Consortium (M2C) Project

9352897 Santos The Maricopa Mathematics Consortium (M2C)--composed of the Maricopa County Community College District, the second largest community college district in the country; Arizona State University, the fifth largest public university in the United States; and four public school districts in Maricopa County-- are instituting a two-year project that is resulting in significant systemic change in the teaching/learning process in precalculus mathematics: the bridge to calculus. The participating institutions, who serve 235,000 students, have a long history of cooperation and joint development. This collaborative effort includes restructuring the curriculum, developing materials to reflect the changes to be made, and using technology and new pedagogies. Faculty/staff development is being provided during all phases to build faculty support and confidence in these new approaches to teaching mathematics (776 faculty). During the evaluation process, they are examining outcomes at key benchmark points in the areas of faculty development, student learning, and developmental processes. A team of administrators, faculty, and staff are providing leadership and management to the project with support from key individuals who serve on the National Advisory Committee.